CAREER: Flow Control and Traffic Modeling: A Rigorous Approach Toward Network Management

NCR-9502582 Konstantopoulos, Takis This is a proposal about the development of a rigorous approach toward network management and performance analysis for high-speed networks considering local and global aspects of a network management system. Local aspects include the design of flow controllers at the edges of the network that take into account the provision of quality of service and the interaction between users in a network switch. The investigator will extend recently developed techniques that are based on the so-called reflection mapping, develop testing techniques and simulations, and compare these to existing schemes. The investigator will also study traffic modeling. He will develop rigorous methods for validating self-similar traffic processes arising from the operation of an integrated services high-speed networks and use such models in establishing performance analysis methods. Studying the global aspects of a management system involves using a macroscopic picture of the network currently being developed by the investigator. The picture strips out the minutiae of the operation of the network, while retaining its dynamic character (it is not static). The investigator proposes the use of such a picture by a network management system in order to predict, prevent, and correct undesirable behavior that might lead to degradation of services across the network.